REU Site in Astronomy and Astrophysics at University of Wisconsin-Madison

Proposal ID: AST 0139563
PI: Linda Sparke

Dr. Sparke is awarded funds to establish a Research Experiences for Undergraduates site in astronomy and astrophysics at the University of Wisconsin-Madison. The first year, six students will work with researchers in the Astronomy Department and in the Astrophysics group based in the Physics Department. The number of students will be increased to eight beginning in the second year. The research projects include theoretical and observational studies of stars, galaxies, and the interstellar medium; instrumentation; and gamma-ray and X-ray observational astrophysics. In addition to their research projects, students will participate in a weekly lecture series, social events, and two organized weekend field trips. The students will be housed in a dormitory together with students involved in undergraduate research campus-wide.